Parallel System Resource Management

Effective resource management algorithms are critical to the performance of a computer system. This project will address open questions related to effective resource management in parallel computer systems, using a combination of experimental techniques, simulation, and analytical performance models. In particular the project will investigate questions concerning high performance parallel processor allocation policies, the interplay between parallel processor allocation and memory management, the interplay between parallel programming models and appropriate workloads for evaluating parallel resource management algorithms, and the impact of workload characteristics on the performance of particular parallel system resource management algorithms. The interactive component of this project involves: (1) teaching two courses, one a graduate seminar and one a core graduate or undergraduate course, (2) hosting a Northwest Workshop on Academic Careers for Women, modeled after the recent Computing Research Association (CRA) workshops of the same title, (3) participation in the mentoring and outreach efforts of the Women in Engineering program at the University Washington, and (4) joint research with Computer Science and Engineering faculty and students at the University of Washington.